PYI: Optical Network Based on Pulse-Modulated Subcarrier Multiplexed Transmission

The current research interests of the nominee are: 1. high speed optoelectronic devices in the millimeter wave frequencies. 2. architecture of lightwave networks based on partially tunable lasers. 3. wavelength tunable optical devices for multi-access lightwave networks. 4. non-linear optical techniques for producing high pwoer semiconductor laser sources and for dense optical switching networks.